Travel: DFD Meeting Travel Grant

This award will provide partial support for graduate students, post-doctoral researchers, and junior faculty members from U.S. institutions to attend the American Physical Society Division of Fluid Dynamics (DFD) 79th Annual Meeting in Orlando, FL, November 22-24, 2026, 80th Annual Meeting in Boston, MA, November 21-23, 2027, and 81st Annual Meeting in Chicago, IL, November 19-21, 2028. This is the largest international annual meeting of fluid dynamics experts in the world, with approximately 3000 anticipated attendees. The meetings will provide opportunities for young U.S. researchers to learn from world experts about current research in fluid dynamics and to make new connections that may lead to future collaborations.

The Division of Fluid Dynamics annual meetings will provide forums for the exchange of scientific ideas, presentations of current research, and exposure to an array of topics covering virtually every sub-discipline of fluid dynamics. In addition to focusing on the fundamental fluid dynamics of important applications, the meetings will emphasize advances in computing (e.g., mixed precision arithmetic and quantum computing), machine learning for uncertainty quantification, turbulence modeling, and bioengineering. Other topics of interest will include, control, sensing, non-equilibrium flows, data compression, and model reduction. The conference will be attended by senior researchers and young scientists in fluid dynamics from around the world, who will discuss present and future research directions new challenges. The conference will foster cross-fertilization of ideas among researchers in innovative areas of fluid dynamics and will address challenges involved in advancing the field.